IRES: U.S.-France Cooperative Research in Engineering Innovative Software Systems with Applications to Maritime Transportation Logistics

0729792
Ramaswamy

This International Research Experiences for Students project will support U.S. undergraduate students from the University of Arkansas Little Rock (UALR) who will conduct research at the Institut National de Sciences Appliquees de Rouen (INSA) in France. The U.S. team will partner with The Laboratoire d'Informatique, de Traitement de l'Information et des Systemes laboratory at INSA-Rouen directed by Roger Goglu. The proposal will fund eight U.S. undergraduate students per year to spend six weeks in Rouen over a three-year-period. Students will research software systems with applications to maritime transportation logistics. These systems will resemble real-world applications by stressing on a multi-disciplinary research to bridge discipline-specific theoretical research issues with real-world practice. Students will take part in pre-visit activities, such as a discussion course where they will formulate research questions, identify specific resources they will need to answer those questions, and develop active learning techniques for critical learning and comprehension. After the research visit to INSA, the students will present their research project to their peers at UALR and compile their results into a scientific paper for appropriate dissemination. Faculty members from UALR plan to visit Rouen to strengthen ties and facilitate collaborative research projects: one faculty member will go with the students during the beginning of the trip to ensure their orientation and adjustment to the new environment; the other will go towards the end of their research activities.

This project is co-funded by the Office of International Science and Engineering and the Directorate for Computer and Information Science and Engineering.